A Plan for Sponsored Attendance of Electrical Engineering Students to IEEE-PES Meetings, "July 1989 - January 1991"

This project facilitates the attendance of undergraduate students at the national conferences in electric power engineering. The intent is to encourage student interest in this field by exposing them to the latest research activities. Although electric power engineering is a traditional field, it is a vital one for the economy, and the continuing availability of trained manpower to stay internationally competitive is important.